High Performance Liquid Chromatography in Undergraduate Chemistry Laboratories

The aim of this project is to improve chemistry instruction at Monmouth College by incorporating high performance liquid chromatography (HPLC) into the undergraduate laboratory curriculum, to complement separation theory taught in lecture courses. The HPLC instrumentation will be used by students in quantitative analysis, instrumental analysis, and organic chemistry laboratory courses, to gain direct experience with and apprecia-tion for this powerful modern method of separation and analysis of compounds. Students will conduct analyses of "real-life" sample mixtures; determine effects of eluent composition, column temperature, and gradient elution; and monitor progress of organic reactions. The valuable experie-nce gained with the theory, operation, and applications of HPLC will contribute to students' later success in the workplace and in graduate research.